Mathematical Sciences: Third North American Conference of New Researchers in Statistics and Probability; July 23-26, 1997; Laramie, Wyoming

DMS9615340 Huzubazar This award provides partial support for the third New Researchers' Conference in Statistics and Probability. Participants at this conference are recent Ph.D. recipients and doctoral students who are within a year of completion of their degrees. This is the only conference in North America exclusively for new researchers in Statistics and Probability. The first two conferences, held in August 1993 and July 1995, were very successful and had close to fifty participants each. The conference, planned by the New Researchers' Committee of the Institute of Mathematical Statistics (IMS), will also be listed as one of the special pre-meeting conferences at the 1997 annual meeting of the IMS. The objective of the conference is to bring together, in the early years of their careers, researchers from diverse areas of Statistics and Probability. Research areas include computationally intensive statistical methods, Bayesian and non-Bayesian inference, applied probability and stochastic process, as well as areas with an emphasis on application of statistical methods such as biostatistics, environmental statistics, and engineering. The conference is limited to 50 participants, and lasts for 3 days during which each participant is required to present her/his research in the form of a short talk or in a poster. Such active participation is important for researchers in beginning stages of their careers because it facilitates an exchange of research ideas. The program also includes three overview talks by senior researchers on cutting-edge research in Statistics and Probability as well as a panel discussion on how to initiate a research program. The conference will be held before the annual meetings of the Institute of Mathematical Sciences so that participants can then attend those meetings.